Proposal for Support of the 26th International Cosmic Ray Conference, U of U, 1999

*** 9708210 LOH The International Cosmic Ray Conference, to be held in Salt Lake City in 1999, is the premier conference in this field. Support from the NSF will allow students and young scientists to participate in this conference. ***